U.S.-Japan Cooperative Research (Photoconversion/ Photosynthesis): Mechanism for the Acclimation of Photosynthetic Membranes to the Environment

This award will support a two-year U.S.-Japan Cooperative Photoconversion/Photosynthesis Research Program project between Professor Anastasios Melis, Department of Plant Biology, University of California Berkeley, and Professor Yoshihiko Fujita, Department of Cell Biology, National Institute for Basic Biology, Okazaki, Japan. The project will focus on the mechanism by which plants and algae are capable of adjusting both the size of their photosynthetic units in photosystem-II (PSII) and photosystem- I (PSI), as well as the ratio of PSII/PSI in response to differences in the quality of illumination. Such ajustments constantly optimize the photosynthetic capability of whole plants or plant parts and even whole ecosystems. This is a very important question. The collaboration will help combine the use of resources in elucidating the molecular mechanism that regulates photosystem stoichiometry adjustments in chloroplasts. In particular, the research will address the processes of signal perception and signal transduction in the chloroplasts leading to photosystem stoichiometry adjustments, and on different aspects of the regulation of gene expression by light-quality and nutrient availability in photosynthetic prokaryotes and higher plants.